Quantitative Systems Biology Workshop to be held September 13-14, 2000, in Arlington, Virginia

This project includes organization of a workshop to be conducted by the National Science Foundation (NSF) with support from the International Technology Research Institute (ITRI). The objective of this workshop, to be held September 13-14, 2000, is to gather facts and opinions from the U. S. research community on how the emerging area of Quantitative Systems Biology should be defined for purposes of a research initiative by the National Science Foundation, Directorate of Engineering (ENG). This will include an overview of U. S. and international research and development that fall within this definition, and to identify areas where enhanced NSF/ENG support could make an important contribution. The information presented at the workshop will be distilled into a report for NSF/ENG.